Thermal and Mechanical Transport in the Laser Heating of Glass Surfaces

Abstract C. Grigoropoulos - CTS 9710502 The principal investigators propose to study the thermal transport in the laser heating of glass surfacrs. The foxus is on understanding and predicting the heat transfer and surface deformations associated with pulsed infrared laster heating. Temperatures will be measured using time resolved pyrometry and interferometry to resolve the nature of thermal transport at small length scales. Surface deformations will be measured using beam deflection and will form the basis for future modeling of the mechanial behavior of glasses at high temperatures and in radiative fields.